A Computer Based Laboratory for Statistics and Experimental Psychology

This project establishes a microcomputer laboratory for Psychological Statistics and Experimental Psychology. It increases the sophistication of data analysis and simulation possible in Statistics and it enriches the research experience of students in Experimental Psychology. It makes the microcomputer and its associated technology central to the undergraduate experience in Psychology. A cluster of 5 work- stations, a physiological data acquisition system, laser printer, and the hardware to link the cluster to the campus- wide network as well as statistical, simulation, and research software is provided by this grant. The project ensures that undergraduates in Psychology receive rigorous training in statistics, methodology, and experimental design. The computer-based experience provides the foundation and the framework needed for advanced study and research.